Probing Limits of Fundamental Assumptions in X-Ray Interactions with Matter

9876996
Lindle
This research project focuses on an analysis of the details of the interaction of x-rays with atoms and small molecules. Particular attention will be paid to the extent to which the independent-particle approximation and the dipole approximation are valid in describing the experimental results. The experiments will be performed at the Advanced Light Source.